Structure-function relationships of supported membranes

Professor Tonya L. Kuhl of the University of California-Davis is supported by the Division of Chemistry to develop advanced analytical techniques, including high resolution synchrotron x-ray reflectivity (XR), grazing incidence diffraction (GID), fluorescent microscopy, and surface force microscopy, for the characterization of the structure of lipid membranes and the quantification of the interaction forces responsible for lipid self organization and membrane formation. A systematic approach will be used to determine the effect of lipid composition, environmental conditions, and the chemistry of the underlying support on the structure of the membranes. The lipid membrane will be placed on a pH-responsive polymer cushion to enable the incorporation of proteins without distorting their structure. Another related thrust is to develop a lipid membrane platform for 2-D protein crystallization.

The overarching aim is to develop robust and easily fabricated biomimetic membrane platforms for fundamental biophysical studies and for the assembly of biochemical sensors that mimic the chemical and physical environment of the cell membranes in a controllable manner. Understanding these model systems opens the door for the study of biological membranes which play a crucial role in enabling the proper functions of cells. Students will be trained in the use of advanced photon sources to conduct multidisciplinary research at the interface between chemistry, physics and biology.